NSF Young Investigator

9458018 Soboyejo The program explores the use of cutting edge materials science and micromechanics concepts in the microstructural design of high temperature intermetallic alloys and composites. The research involves the application of fundamental knowledge derived from basic studies of materials structure, processing, and failure mechanisms, in the design of inorganic materials for high temperature structural applications. The systems studied include; in-situ titanium-matrix composites produced by rapid solidification and ingot metallurgy techniques; twin-toughened gamma-based titanium aluminide intermetallics produced by ingot and powder metallurgy techniques; and synergistically toughened nickel aluminide composites produced by dry phase blending and spray forming techniques. After processing, very detailed studies of composite structure and failure mechanisms are carried out on composites with different microstructural size scales. Systematic experiments and micromechanics analyses are performed to investigate the effects of crack-tip shielding mechanisms on composite mechanical properties. %%% The knowledge derived from these studies will be used to guide the development of practical concepts for the design of damage tolerant composites with different microstructural size scales. ***